RUI: A Study of Variational Methods for Lattice Hamiltonians

This work will study a variational method for producing upper bounds for energy levels of lattice Hamiltonian systems. The long term goal is to make lattice calculations, which are widely used in theoretical physics computations, more efficient and accurate.